Terahertz Charge Dynamics in Oxide Films and Heterostructures

w:\awards\awards96\*.doc 9870258 Orenstein This experimental research project focuses powerful new methods of time-domain terahertz spectroscopy on questions of charge dynamics in oxide thin films. The physics associated with collossal magetoresistance and with cuprate superconductivity are two thrusts of the work. The thin film samples are prepared by several collaborators, with state-of-the-art synthesis methods including reactive electron-beam coevaporation, molecular-beam epitaxy, and ultra-high vacuum pulsed laser-ablation. Measurements of the real and imaginary parts of the electrical conductivity will be made in the range from 100-3000GHz, which lies in a gap between ranges accessible by microwave and FTIR methods. A further aspect of the work involves bilayers of magnetic (M) and superconducting (S) oxides, and trilayer configurations in which M and S layers are separated by thin insulating layers. The ultimate goal of the research is to understand and control electronic transport in designed-to-order multilayer thin films. This research program is interdisciplinary in nature and involves one or more postdoctoral and graduate students, who receive excellent training in preparation for careers in industry, government laboratories or academia. %%% This experimental research project focuses powerful new optical pulse methods to clarify the motions of charge carriers in certain types of oxide thin films. The oxides under investigation show great promise for applications as magnetic sensors or electron devices, or as superconducting elements in a future electronics. The fundamental physics associated with collossal magetoresistance and with cuprate superconductivity are two thrusts of the work. The thin film samples are prepared by several collaborators, with state-of-the-art synthesis methods i ncluding reactive electron-beam coevaporation, molecular-beam epitaxy, and ultra-high vacuum pulsed laser-ablation. Measurements of the electrical conductivity will be made in the range from 100-3000GHz, which lies in a gap between ranges accessible by microwave and Fourier-transform infrared methods. A further aspect of the work involves bilayers of magnetic (M) and superconducting (S) oxides, and trilayer configurations in which M and S layers are separated by thin insulating layers. The ultimate goal of the research is to understand and control electronic transport in designed-to-order multilayer thin films. This research program is interdisciplinary in nature and involves one or more postdoctoral and graduate students, who receive excellent training in preparation for careers in industry, government laboratories or academia. ***